Novel Magnetic Nano Films and Devices for Millimeter Wave Communications

NSF ECCS Proposal #0725386
Novel Magnetic Nano Films and Devices for Millimeter Wave Communications
Principal Investigator: Carl E. Patton
Co-Principal Investigator: Mingzhong Wu

The research objective is to use standing spin wave resonance (SSWR) in magnetic films to
develop a new class of millimeter wave radar and signal processing devices that are compatible with
monolithic integrated circuit technology. The program will use thin films with pinned surface spins
that support SSWR modes across the film thickness. In very thin films, these modes give a large
effective exchange field that shifts the corresponding FMR frequencies into the millimeter wave range.
The target film materials will include ferrite films and high-magnetization metallic films, as well as
multilayer structures. The films/structures will be produced by pulsed laser deposition, e-beam
evaporation, and magnetron sputtering, and integrated into prototype devices such as circulators,
isolators, notch filters, bandpass filters, phase shifters, and directional couplers.

Intellectual merit:

The fabrication of new nano films and structures will advance film deposition
science and technology. The characterization work will advance the understanding of magnetic loss
processes at millimeter wave frequencies. The device development will advance millimeter wave
device physics and technology. The new devices will have a major impact in both commercial and
defense technology arenas.

Broader impacts:

The impact on the fields of nano-materials technology and millimeter wave
science and technology will be substantial. Underrepresented groups will be involved through the
Colorado State University (CSU) diversity recruitment and retention program and the Army sponsored
summer Research and Engineering Apprenticeship Program. Experiential learning at the K-12 level
will be promoted through a partnership with the CSU Little Shop of Physics.